Development of Adaptive Hybrid Control Techniques for Building Structures

The objective of this project is to develop a novel hybrid control system for building structures. The system is intended to exploit the efficiency and flexibility of active control, while maintaining the safety and reliability of passive systems. To achieve this objective, a screw-jack or shock- absorber type of actuator that incorporates both passive and active damping mechanisms will be developed. Such devices are to be installed in structural braces with collocated sensors, and can be easily distributed at multiple locations in a structure. To implement such a system, different control algorithms based on robust and adaptive control concepts will be explored. Optimization techniques will be used to determine the optimal allocation of active/passive control devices and sensors, and to maximize both the efficiency and safety of the control system. The hybrid system will be finally validated by laboratory tests. The study will be carried out with an interdisciplinary effort involving researchers from structural, electrical, and aerospace engineering. The research will lead to the development of safer and more effective control systems for building structures under wind and earthquake excitations.